CRI: Wireless Internet Building Blocks for Research, Policy, and Education

ABSTRACT
Proposal: CNS 0454404
PI: Dirk C. Grunwald
Institution: University of Colorado at Boulder
Title: CRI: Wireless Internet Building Blocks for Research, Policy, and Education
Program: NSF 04-588 CISE Computing Research Infrastructure

This project addresses sharing in the radio spectrum; current estimates are that about 10% of allocated spectrum is actually used. The PI's will address this problem with methods for agile spectrum use, including use of non-contiguous spectrum, reservation of spectrum as an alternative to ownership, and smart radios. This award will fund equipment used for three broad purposes: measurement of spectrum use which will enable developing models of use and diagnostic tools for experimentation, research on wireless networking with a wireless testbed, and providing an infrastructure for real-time capture and analysis of the wireless testbed spectrum use. In addition to supporting several research activities at the University of Colorado, broader impacts include possible impacts on telecommunications policy through technology investigations and demonstrations and impacts on education at the university.